Conference Grant: Student Travel Awards for the 15th International Workshop on Computational Electronics (IWCE 2012). To be held May 22-25 at University of Wisconsin Madison

The International Workshop on Computational Electronics (IWCE) covers all aspects of
advanced simulation of electronic transport and optoelectronic processes in semiconductors
and semiconductor devices based on both inorganic and organic materials. The scientific
program consists of invited lectures, contributed talks, and poster presentations. The workshop
is held in a single-session format and is intended to be an international forum for discussions on
the current trends and future directions of computational electronics. The 15th International
Workshop on Computational Electronics (IWCE 2012) will be held between May 22 and May
25, 2012 at the University of Wisconsin – Madison. In recent years, the IWCE community has
been increasingly active in the field of energy harvesting, especially thermoelectrics. Therefore,
at IWCE 2012 there will be a companion two-day "School on Phonon Dynamics, Heat Transfer,
and Thermoelectric Phenomena in Nanostructures" held May 21-22, 2012 before the workshop.
Funding is requested to support student participation at the IWCE conference and the
Phonon School. The grant will be used to issue student travel awards that will cover lodging
and registration fees up to $750 per student. Awards for 20 students will be provided by this
grant. Following the program committee's review of all submitted abstracts, authors of the top
ranked student abstracts will be selected as the travel award recipients. In the case of multiple
similarly ranked abstracts, priority for the travel award will be given to an underrepresented
minority student or a female student.

Intellectual merit. IWCE 2012 will draw particular attention to the frontiers of computational
electronics that connect to materials science, physics, and energy applications. Three focus
sessions, with only invited talks, and the Phonon School will offer an infusion of potential new
research directions for the whole community. There is a lot of challenging computational work to
be done in spintronics, thermal transport in nanostructures, and materials for energy
applications. This workshop will serve as a starting point for many exciting avenues and an
evolution of the topics addressed by the computational electronics community. In addition, with
a strong focus on thermal and thermoelectric phenomena, IWCE is poised to make a bridge
between the heat transfer and electronics communities, which will strengthen both in the quest
for nanomaterials solutions to energy problems.

Broader impacts. By enabling students to take part in the conference, we will be help the new
generations of researchers to come onto the stage early in their career and be recognized for
their work among peers and senior researchers. This grant will enable 20 students to attend the
conference, thereby increasing student participation, improving their exposure in the
professional community, and benefiting their careers in the long term. We will ensure
participation of women and underrepresented minority scientists as invited speakers at the
event. Prominence of these role models will have a beneficial effect on the female and minority
students whose participation at the IWCE will be supported by this grant.